CAREER: Three-Dimensional Volume Visualization of Multi-Variate Data

Computer simulations and even experimental devices generate more than a
single variable. These variables typically exhibit complex
interdependencies which must be thoroughly understood to improve the
simulation codes and understand the complex systems being studied.
Unfortunately, cluttering prevents this from being achieved in current
visualization systems. Users are thus left with generating several
different representations and mentally merging them together, a nearly
impossible feat. The goal of this project is to provide new methods that
will let scientists browse through their terabytes of data searching for
interesting patterns or irregularities. A secondary component of this
project is to illustrate the utility of the new technique to the rest of
the computer graphics industry, including efficient volume rendering for
objects such as fire, clouds and water. These solutions will bring
computational scientists one step closer to a seamless environment for
studying both multiple simulations and complex interactions within a
simulation.

Technically, the project will investigate new methods for representing
complex vector fields and multi-dimensional scalar fields defined over a
three-dimensional mesh topology. A particular emphasis will be on extending
a direct volume rendering technique known as "splatting" to provide
integrated representations of multiple data variables. (The name comes from
a step in the method that constructs a footprint or "splat" used to project
3D basis functions onto surface textures.) In particular, this research
will extend the state-of-the-art in direct volume rendering by developing
techniques to depict non-homogenous or isotropic volumes. These volume
textures will be developed along with efficient rendering techniques to
allow them to reinforce or segregate different regions of a volume,
control representations of time-varying data, and apply the representations
to virtual reality settings.